The Role of Conceptual Design within Design Theory

This research has two major components: design theory and human factors. In design theory, work will be pursued in the investigation of formal mathematical structures such as graphs and lattices. In human factors, the interface (e.g., task organization, information presentation and computer capabilities) between the designer and the machine will be examined. A computer system that will assist a designer with the conceptual stages of the design process should be the result of this research.